Some Problems on Source Encoders and Channels in InformationTheory and Communications

In this research, attention is focused on three problem areas in information theory: feedback quantization schemes, nonstationary channels, and entropy-constrained quantization. A fourth topic involving a noise source for a stationary channel is also pursued. Feedback quantization schemes are encoding schemes for efficient transmission of information. In this investigation a general theory of stochastic stability for such schemes is being pursued. In the last topic, considering the physical communication channel, a noise source is constructed for each channel, thereby modeling the channel noise. This could lead to a classification of channels according to the type of noise source.